Boundary Scavenging in the Atlantic Ocean

Results from present studies of boundary scavenging in the Pacific ocean suggest that as much as 70% of dissolved particle-reactive chemical species, like 10Be, may be removed from the ocean in margin environments. This prediction, however, is based on only a few studies of margin environments in the eastern Pacific and presumes that enhanced deposition of particle-reactive chemical species occurs in all ocean-margin environments. In a contemporary study in the western North Atlantic no evidence has been found for enhanced deposition of the radioactive tracers that are commonly used to evaluate boundary scavenging. A better understanding of the factors that lead to very different removal efficiencies at different margins is required before the ocean-wide transport and fate of particle-reactive chemical species can be modeled and protected. This research will test two hypotheses to explain the absence of boundary scavenging off the east coast of the U.S., one of which is related to the presence of strong western boundary currents off the east coast, and the other related to export of fine-grained particulate manganese. A multi-pronged approach to test these hypotheses will be employed. Specific tasks include; 1) tests for boundary scavenging of 10Be in the Middle Atlantic Bight, 2) an examination of samples of fine-grained particulate matter collected by large volume in situ filtration to assess the enrichment of radiotracer concentrations in Mn-rich particulate phases being transported away from the margin, and 3) a study of boundary scavenging at an eastern North Atlantic margin to complement recent studies off the east and west coasts of the U.S.